RUI: Structure and Dynamics of Physisorbed Monolayer Films

The proposed research will focus on the determination of the microscopic structure and lattice dynamics of physisorbed, incommensurate monolayers. An important part of this study will be the calculation of the detailed shape of the static and dynamic structure factors. Calculations will be done for both quantum and classical solids, and will examine both finite temperature effects and quasi-two-dimensional behavior. The importance of various energy terms will be explored, and the sensitivity of the results to reasonable variations in the interatomic potential funtions will be investigated. The theoretical approach to be used in this study is a variation of and an extension to a nonlinear coupled-harmonics theory which has been successfully applied to the zero temperature classical solid. This theory can be used both far from and near to the commensurate-incommensurate transition. The modifications to the original theory include the use of a self-consistent phonon to treat the dynamics of the solid monolayer. Some computer simulations of solid phases and phase transitions will also be done.